Medical and Biological Engineering Symposium

This grant is for partial support for a two-day symposium, "Medical and Biological Engineering: A Celebration of the Past and Challenges of the Future". The symposium, featuring prominent engineers and scientists, is the culmination of a two- year effort to establish a new organization (American Institute for Medical and Biological Engineering) that will catalyze the interaction of the currently fragmented segments of medical and biological engineering. It is expected that the new organization will play a major role in the further development of the rapidly growing field of bioengineering.